Testing Systematic and Evolutionary Hypotheses in a Primitive Neotropical Group of Violets (Viola sect. Leptidium)

The "true" violets, belonging to the genus Viola, comprise a large and very
diverse group of plants that is found worldwide but is especially rich in
the mountain regions of the Latin American tropics. Like many other
tropical plant groups, Latin American representatives have received little
serious scientific attention. Studies are desperately needed to understand
species diversity there, clarify distinctions of species and figure out
relationships among them, and eventually to illuminate evolutionary
processes of diversification. Recent molecular studies of Latin American
and other violet groups worldwide by the Principal Investigator demonstrate
that Latin American violets are the oldest and most primitive of all.
Thus, investigations on these violets will reveal important clues regarding
the origins of violets around the world, their evolution, global migration
and remarkable success. One of the two largest violet groups in Latin
America, section Leptidium, is the focus of the funded research.

Field expeditions to Colombia and Venezuela, Peru and Bolivia, and
southeastern Brazil, will be made to study populations of all species of
sect. Leptidium in the field and to bring back flowering and fruiting
materials for intensive laboratory studies. Details of flowers, leaves,
capsules and seeds will be compared among field-sampled populations, and
against thousands of museum collections on loan from other botanical
institutions, to determine recognizable species. A composite
representative from each of several populations of each species will be
brought back from the field expeditions for molecular investigations. Two
types of molecular data, DNA sequences from the nuclear Internal
Transcribed Spacer region, and highly variable Inter-Simple Sequence Repeat
markers, will be generated from the population samples to interpret
relationships between populations and species in section Leptidium.
Chromosome numbers taken from flowers of species in the group, and physical
characteristics of species, will be compared with other groups of violets
around the world, in order to interpret evolutionary patterns in the "true"
violets as a whole. A traditional taxonomic treatment will be completed
for species in section Leptidium, to serve botanists and naturalists who
encounter these violets in Latin America.